Autonomous Time Series Measurement of 14C Primary Production on the Bermuda Test Bed Mooring

Using two Time Series - Submersible Incubation Devices (TS-SID), researchers are conducting autonomous high temporal resolution measurement of carbon-14 primary production on the Bermuda Testbd Mooring. These measurements seek (1) ground truthing of bio-optical models used by BTM investigators for estimating primary production from mooring bio-optical measurements, and (2) a head to head comparison with ship based Bermuda Atlantic Time-series Study (BATS) primary production measurements for confirming long term accuracy of TS-SID function, and providing direct quantification of phytoplankton response to short term perturbation. The TS-SID constitutes the highest resolution long term measurement of carbon-14 primary production made in this region, and can address issues of temporal aliasing and how well short term events (such as the spring bloom) are represented by the lower frequency study. Resulting data will intercalibrate a composite term encompassing maximum quantum yield and spectrally weighted phytoplankton absorption coefficient - variable necessary to translate bio-optically measured incident light and chlorophyll biomass into estimates of production.